Equipment for Systems Prototyping and Verification Laboratory

Equipment for system prototyping and verification will be provided for researchers at Duke University for research in the Departments of Computer Science and Engineering. The equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The equipment will be used for several research projects, including in particular: 1. Parallel architectures for ray-casting and solid modeling 2. Solid modeling 3. Architectures which include parallel instruction caches and decoding units 4. Non-homogeneous tightly-coupled multiprocessor systems for vision 5. Modular high-performance architectures 6. Specialized multiprocessor architectures for specific large scientific problems such as atomic-level molecular dynamics calculations